Improved Initial Data for Black-Hole Binaries

This research seeks to construct the initial data for a pair of black
holes in an astrophysically realistic close binary system. This data
represents the state of the binary system at an instant of time, and
is the necessary starting point for determining the evolution of the
system. Two new approaches for constructing the initial data will be
explored. Both approaches build into the data the idea that the
systems are nearly in equilibrium. However, the two approaches differ
drastically in how the black holes themselves are treated.

The collision of a pair of orbiting black holes is a dramatic event
that we hope to detect soon in gravitational wave observatories such
as LIGO. Simulations, starting from binary black hole initial data,
will provide the theoretical foundation for interpreting much of the
data obtained by LIGO. The detection of black holes with LIGO will
offer the most direct evidence possible for their existence, and will
open up an exciting new window for exploring the universe.